Using Hawaii's Unique Biota for Biology Education in a GK-12 Project

Based on the theme "Nothing in biology makes sense except in the light of evolution", the Ecology, Evolution, and Conservation Biology (EECB) Graduate Program has entered into a partnership with the State Department of Education to enhance K-12 education in the biological sciences. Students in the EECB program comprise some of the best students in the biological sciences at the University of Hawaii, and by taking their field-oriented thesis research programs into the K-12 classroom they are developing a science education program that is motivating and stimulating K-12 students into considering science as a career opportunity. The program is providing an opportunity for EECB students to improve the content knowledge and inquiry skills of the students and teachers at K-12 schools in Hawaii. The program is also conducting a series of courses that provide students selected as GK-12 Fellows with the learning processes, knowledge transfer/curriculum development techniques, and the teaching and learning tools to enable them to work effectively with K-12 students and teachers.